Assessing the Literature on the Benefits of External Science and Technology Aid Assistance to Developing Economies

Technology is a key input to development, and to sustain it, a sound science base is required. Therefore, a large number of international agencies give science and technology (S&T) aid and assistance to lesser developed nations. They provide this assistance in both narrow focused as well as broad based program activities. Examples of such program types include health, agriculture, infrastructure, economic development, education, and the environment. The primary objective of this project is to assess the available literature to determine the extent of beneficial impacts of this S&T aid assistance on the society and economy of the recipients. Project reports available from the major international donor agencies, electronic data bases, and traditional print sources, representing all of the major world regions (Asia, Africa, Central/South American), and focusing on the program types listed above, will be reviewed and analyzed. the literature reviews, as well as the summary assessment will be structured to include geographic data, planning, objectives, procedure, problems encountered, and evaluation of impact of the project (s) under review. The primary purpose of the research is to identify areas of successful socioeconomic impact from S&T aid assistance programs, areas in which the results have not been as successful, and attempt to identify commonalty among the projects found in the two areas.